Exploration of Careers in Applied Physics and Engineering for Students in Grades 9 and 10

9452827 Kernell The Old Dominion University seeks to initiate a four-week, residential, Young Scholars program in applied physics and engineering for 22 students entering grades 9 and 10. The project provides students the opportunity to become acquainted with the subject content of applied physics and explore a variety of careers in several areas of physical science and engineering that involve substantial applications to physics. Experiences include classroom instruction, hands-on laboratory activities, field trips, and small group research projects mentored by university members. The project provides supportive relationships to participants, offers information on career opportunities and academic requirements, and helps participants build a foundation for success in applied physics, engineering, and related fields.